Logics for Program Development and Analysis

This is a research planning grant. The PI is preparing a proposal on logics for program development and analysis. The PI has produced research results in mathematical logic and is expected to be successful in producing results of interest in theoretical computer science.